RIA: Modeling Faulty Neural Networks

This research is on modeling faulty neural networks using a fault polynomial representation to facilitate the creation of a Markov model. The initial method has the capability of analyzing neural networks with about twelve neurons. This research extends the technique to allow the analysis of a neural network with several hundred neurons. Other related research objectives include studying different fault models, fault analysis accuracy, related disciplines for analysis techniques, dynamic behavior measurements, other neuron models, learning, and different neural network architectures. Digital computer techniques are used to compute and verify the results. This research allows the faulty behavior of neural networks to be analyzed. It provides a motivation for implementing neural networks with a large numbers of neurons. It also models some aspects of the dynamic behavior of such neural networks.